Elements of Valuing Biodiversity

There is no doubt that the pace of species extinction caused by human activity is brisk and alarming. While this process cannot reasonably be expected to stop completely, one can still have the goal to at least preserve the most valuable species. In order to do this, there must be some idea in the minds of citizens about the determinants of a specie's value. For example, to what extent are the attributes of a specie such as location, uniqueness, and intelligence important? Can people make tradeoffs among different species that vary on a number of important attributes? Are they willing to do so? Can people's preferences for species be translated into dollar values that can be used to inform public policy? The purpose of this research is to address these questions. Since the perceived importance of biodiversity and species preservation is substantially driven by non-use values, observation of market behavior is precluded and survey research methods are required. The first phase of the study uses in-depth interviews and laboratory experiments to thoroughly study people's mental models of the species domain. The survey instrument will be refined in the second phase and the survey will be administered to a national sample in the third and final phase of the research. Whereas the first phase will provide valuable insights into the cognitive processes underlying the construction of preferences in an important and unfamiliar domain, the survey results will provide policy makers with quantitative and defensible estimates of the public's values for ecosystems and species preservation.